Online Weather Studies: National Dissemination and Collegial Professional Development Activity With Undergraduate Faculty in Minority-Serving Institutions

Atmospheric Sciences (41)
The American Meteorological Society (AMS) in cooperation with the US National
Weather Service and the Department of the Geosciences of North Carolina's Elizabeth
City State University is providing professional development opportunities for 100 faculty at
minority institutions with the goal of increasing minority student participation in
science, technology, engineering, and mathematics (STEM). Over a 4.5-year period, this
project will attain this diversity-enhancing goal by making available to minority-serving
colleges and universities Online Weather Studies, an existing AMS-developed distance-
learning course on the basics of atmospheric science partially delivered via the Internet.
Greater minority student participation in STEM requires greater access to
scientific learning experiences that engage student interest and develop their critical
thinking skills. Critical thinking and associated reasoning skills are considered essential
for student success in STEM. Online Weather Studies is designed to meet this goal
through electronic delivery of highly motivational investigations written to current
weather conditions. To facilitate adoption and implementation of Online Weather
Studies, the project provides professional development experiences for faculty (25 per
year for 4 years) via a 5-day summer workshop at the National Weather Service Training
Center (NWSTC) at Kansas City, MO plus a series of two-day workshops treating
science content, pedagogical, and diversity issues as a regular feature of the AMS Annual
Meeting held each January.